Problems in Equivariant Algebraic Geometry

The purpose of this project is to use equivariant methods to study
problems concerning algebraic varieties with group actions. Part
of this project involves moment graphs of varieties with torus
actions. For a variety on which a torus acts with finitely many
fixed points and curves, one can define a combinatorial object
called a moment graph. There has been much recent progress in
computing topological invariants, such as cohomology or
intersection homology, in terms of the moment graph. The
investigator proposes to extend this to K-theory. Schubert
varieties are among the most important varieties with this type of
torus action; the investigator plans to continue work with Brian
Boe on a conjecture that would simplify determining if a point in
a Schubert variety is rationally smooth. Moreover, he plans to
extend some facts known only for Schubert varieties to the more
general setting of varieties with this type of torus action. In
addition, the investigator plans to use equivariant methods to
study certain interesting varieties: he plans to calculate
Chern-Schwartz-MacPherson classes of degeneracy loci, and to
calculate interesting invariants (degrees, push-forward measures)
of nilpotent adjoint orbits of reductive Lie groups.

This project is in the area of mathematics referred to as
"algebraic geometry." Algebraic geometry studies geometric
objects by describing them as solutions to polynomial equations
-- such objects are called "algebraic varieties." Fortunately,
although algebraic varieties can be very complicated, many of
them have a great deal of symmetry. Mathematicians have been
intensely investigating such varieties with extra symmetry for
several reasons: The presence of such extra symmetry makes
these varieties easier to study, so that these varieties are
valuable test cases in developing methods to investigate all
varieties. Moreover, varieties with extra symmetry are of great
interest in their own right: they play important roles in
various areas of mathematics, including number theory,
combinatorics, and representation theory. There has been
considerable recent progress in developing techniques to
understand these kinds of varieties; this project is about
extending these techniques, and using them to study particular
classes of varieties.